Enhancing Mathematics Instruction Through Computer-Oriented Active Learning Environments

The Stevens Institute of Technology is offering a three-year teacher enhancement program to provide intensive training and support during summer and academic year workshops for 40 mentor teachers from 13 New Jersey school districts, who will in turn provide inservice programs for more than 300 teachers in their local schools. The purpose of the project is to improve student achievement in pre-algebra, and geometry in grades seven through ten. The project will utilize state-of-the-art software as a catalyst for teacher change toward a more constructivist and active learning environment. The project is built on four years of research and development. Cost share provided by the university and the schools is 687% of the award.//